Research Careers for Minority Scholars in Chemical Physics (Physical Sciences)

This project will motivate and prepare undergraduate minority students for graduate studies in physics, chemistry, and material science. The plan will strengthen the academic environment of the College of Science and Technology, and establish the school as a significant resource center for promising minority scientists. In particular, it will: o Establish a conducive undergraduate research environment in the College of Science and Technology by providing encouragement and incentive to faculty members to develop creative undergraduate research projects, o Recruit talented minority undergraduate students as Research Scholars in the program, o Enrich their undergraduate educational training by involving them in research projects and imparting basic skills in methods of scientific research, o Enhance their research exposure and motivation by arranging summer research internships at graduate schools and national/Federal laboratories, o Accentuate their self-image and confidence by assigning them as speakers in regular colloquiums and research seminars, o Organize visitations of area high school seniors and juniors to the monthly research seminars to stimulate their interest in sciences and encourage high school students to major in physical sciences, and o Recruit top-ranking high school seniors to major in physics/ chemistry by instituting a Freshman Scholarship program.